Conference: From Carthage to the World: The Isoperimetric Problems of Queen Dido and its Mathematical Ramifications to be held Carthage, Tunisia, Spring 2010

This conference aims to bring together experts on classical isoperimetric inequalities, sharp functional inequalities, and spectral inequalities for a week-long conference in Carthage, Tunisia, where the mathematical problem named after Queen Dido, the founder of Carthage, originated. The week-long gathering at the end of May 2010 will serve as a training ground for young researchers and graduate students, incorporating an intensive program on techniques of rearrangement, spectral analysis, and geometric inequalities. Through a review of major breakthroughs over the last 30 years, and the confluence of recent results by both senior professors and junior researchers, the conference will serve as a means to bring together the many trends within isoperimetry. The conference will also serve as a forum to bring experts on isoperimetry in Analysis and Mathematical Physics into direct contact with those working near the roots of the problem in Geometry. Through 24 plenary talks (expository, intermediate, and advanced), open problems sessions, and a poster session for graduate students, the conference will serve as a venue for a wide-ranging evaluation of trends within the discipline of isoperimetry. Attendees will be exposed to classical mathematical traditions in the context of isoperimetry (probabilistic, analytic, geometric) and more recent trends (nonlinear flow techniques).

The award provides funding of travel expenses of researchers and students working in the U.S. to participate in the Queen Dido conference. The conference is envisioned as a fully international gathering, and it is essential that the activities of mathematicians in the U.S. be adequately represented. The award is co-funded by the Office of International Science and Engineering.